Collaborative Research: SHF: Small: Enabling Caches and GPUs for Energy Harvesting Systems

Energy-harvesting systems collect energy from variant ambient sources such as solar power, thermal energy, and radio-frequency radiation. Due to unreliable energy sources, energy-harvesting systems suffer from frequent power failures. Hence, energy-harvesting systems should be able to save the current program states before a power failure, restore the consistent program states when the power comes back, and seamlessly resume program execution as if nothing happened. However, maintaining crash-consistent states across power cycles is challenging. As a result, the current generation of energy-harvesting systems has been designed with simple hardware configurations such as a single central processing unit (CPU) without a cache, delivering limited computing capabilities. Going forward, in the new Internet of Things era, ever-increasing demand for substantially more high-performance energy-harvesting systems capable of supporting emerging artificial-intelligence and machine-learning applications are expected. This project proposes new software and hardware co-design solutions that allow energy-harvesting systems to leverage caches and graphic processing units (GPUs) for high performance and energy efficiency. The project is expected to serve as the foundation to unlock next-generation Internet of Things services, based on battery-less energy-harvesting systems. The project also aims to incorporate research findings in undergraduate teaching and offer K-12 outreach programs for female students to promote more equitable outcomes for women in computer science.

The objective of this project is to enable caches and GPUs in energy-harvesting systems and to design next-generation energy harvesting systems with high performance and energy efficiency. To this end, the project proposes compiler- and hardware-based solutions in three research thrusts. The project will explore a compiler-based solution that allows existing energy-harvesting systems to use a traditional data cache without hardware modification. The project will explore a new research direction that avoids expensive logging at run time, yet instead recovers potentially un-persisted stores at reboot time. To achieve better performance, the project aims to design a new hardware-based cache for energy-harvesting systems, which combines the benefits of a write-back cache and a write-through cache without their respective downsides. The project will design the first energy-harvesting GPU system that introduces a new checkpointing solution for GPU registers and a lightweight persistence solution for GPU shared memory.